Enamel Maturation in Mammals and Implications for Stable Isotope Analysis for Diet and Climate Signals

The focus of this project is to study how temporal changes in the isotopic
composition of mammals are recorded in developing tooth enamel. Teeth form
progressively from crown to root and act as recorders of seasonal isotopic variation in the
animal blood bicarbonate reservoir. This variation is in turn related to seasonal variations
in climate, food availability, migration, ecosystem interactions, and other environmental
conditions. Isotopic signals are preserved in fossil tooth enamel, so teeth are important
archives of ancient seasonality and environmental variation on short time scales.
Despite the wide usage of intra-tooth isotope approaches, there is considerable
uncertainty as to how the measured signals relate to actual signals of variation within the
animal reservoir. This uncertainty stems from inadequate knowledge of the temporal and
spatial patterns of enamel mineral deposition and accumulation in teeth that are
commonly studied. Although promising, the intra-tooth isotope method will remain
compromised as a paleoindicator until these uncertainties are addressed.
We will use micro-computed tomography (microCT) to investigate the temporal
and spatial pattern of enamel mineral accumulation in developing teeth of animals of
various ages from a range of species. Maturation parameters determined from the
microCT data will enable development of tooth- and species-specific models that
describe how primary input signals are recorded as intra-tooth isotopic profiles. Inverse
models will be developed that allow estimates of primary input signals based on
measured isotope data and knowledge of maturation parameters. Comparison between
model results and known isotopic changes in the animals studied will allow direct
evaluation of the accuracy of these models.
Specifically, this study will provide maturation parameters for dentitions of
Alpaca (alpaca), Capra (goat), and Bos (cow). These animals underwent strictly
controlled isotopic changes during tooth formation, and therefore this study will show the
extent to which forward and inverse models based on maturation parameters allow for
reconstruction of primary input signals. These species span a range of diversity within
the artiodactyla and will show whether general models can be applied to many species
within this order.
Intellectual merit. This study will significantly increase the understanding of a
basic tool used by a wide variety of researchers. The microCT, forward modeling, and
inversion modeling methods will be of immediate use to researchers using the intra-tooth
isotope method. Forward and inverse modeling learned by other researchers as a result of
this study will broaden scientific background and benefit future studies. Advances in the
intra-tooth method owing to this study will help advance our understanding of ancient
human environments and cultures, behavior and ecosystem context of extinct species, and
ancient climates and environments.
Broader impact. This research will form the Ph.D dissertation of Benjamin
Passey. He will be responsible for the design, execution, and dissemination of this
research and will learn valuable skills in project management, laboratory practice, data
evaluation, and professional communication. An undergraduate student will be involved
in laboratory aspects of this project. This person will gain invaluable first-hand research
experience and have opportunities to attend professional meetings to present results